Climate Change on Tectonic Time Scales

This award supports work on modeling climate change on tectonic time scales and focusing on the major glacial-nonglacial climate transitions in Earth history. In particular, this work focuses on simulations for (1) the Ordovician-Silurian (~440 Ma) glacial- nonglacial couplet involving a possible glaciation at high CO2 levels: (2) simulations of conditions favorable for late Paleozoic glaciation and regional-scale comparison of results with economically important hydrocarbon and coal deposits on North America and Europe; and (3) implications of northward plate motion for late Cenozoic onset of glaciation on Greenland. By focusing on these cases this research will address some of the more important issues needed to develop a comprehensive theory of climate change on tectonic time scales.